Theoretical Nuclear Physics

It is proposed to investigate another simple quark model of nuclei, employing the light-front representation, introduced by Dirac, and used extensively by Brodsky in perturbative QCD, and apply it to calculations of elementary particle and nuclear form factors, nuclear forces, and exchange currents in nuclei. This model gives correctly the separation of relative and center of mass motion and relativistic boosts in the particle conserving approximation, so that it is not limited to small momentum transfer like the bag model, and can hopefully be made more realistic than skyrmion models.